Direct Comparsion of Thermal Desorption from Supported Metals and Metal Single Crystals

Thermal desorption from single crystals is normally performed under radically different conditions from thermal desorption from supported metals. In order to make direct comparisons, methods are being developed for measuring thermal desorption from the two forms of metal under identical conditions of pressure and temperature. Knudsen effusion cells are used to measure thermal desorption from single crystals under relatively high pressure. Also being investigated is desorption from supported metals directly into ultrahigh vacuum. Previous single-crystal studies have shown that thermal desorption of carbon monoxide is sensitive to metal surface structure; the techniques developed here may permit this fact to be used to identify surface structures on supported metals. Initially, the platinum-group metals are studied. Nanometer-sized metal structures on the surface of support materials have important applications in microelectronics and in catalysis. Several methods are available to measure bulk composition and structure of such small structures, but most surface analysis methods lack the resolution needed for this scale. This project develops techniques that provide information on surface conformations in very small metal particles.